Understanding Object-Oriented Software Design Evolution in the Extreme Programming Process

Proposal Number: CCR-0097058

Title: Understanding Object-Oriented Software Design Evolution in the Extreme
Programming Process

Principal Investigator: Wei Li

Abstract

Extreme Programming (XP) is a new software process emphasizing source code
as the main communication medium and software testing as the quality
assurance mechanism. This research studies object-oriented (OO) software
design evolution and examines the predictive capability of software metrics
in the XP process by using carefully logged design-change data on two
commercial Java systems developed using an XP-like
process with daily (working day) log on the design change and the change
effort. This project analyzes the collected data and investigates how class
design, as measured by metrics such as CTA, CTM, NLM, WMC, and LCOM, evolves
from one story to the next: i.e. if they show continuous growth or otherwise. The
project also studies if the OO metrics collected at the end of an iteration
cycle can predict the refactoring, error-fix, and new design efforts in the
next cycle by using multiple linear regression. The result from this study
helps us understand how customer requirements, which come in small chunks
(stories) from the customer in the XP process, affect software design
change.